Marine Technicians - R/V POINT SUR

9703802 Greene This award to San Jose State University Foundation provides shipboard technical support, shore-based support, instrument maintenance and instrument calibration for researchers using R/V Point Sur, a research vessel operated by the Moss Landing Marine Laboratories as part of the University National Oceanographic Laboratory System research fleet. The technical support awarded here will assist NSF-funded ocean researchers conduct studies in the eastern North Pacific Ocean in 1997. ***